Support for the 1991 Gordon Research Conference, "Reactive Polymers; Ion Exchangers and Adsorbents"

This is a travel grant for a Gordon research conference (August 19-23, 1991) for ion exchangers and adsorbents. The presentations focus on ion exchange phenomena and materials. About twenty industrial and academic speakers from the U. S. and abroad will participate. A poster session for graduate students is also planned. The discussions will help scientific communications, interdisciplinary interaction, and education in important fields of separation science and technology.